Yuma Dictionary and Texts

The purpose of this project is to continue the documentation of Yuma, the language of the
Quechan Indians, spoken on the Fort Yuma Indian Reservation in Winterhaven, California. Its
immediate goals are (i) to compile a dictionary of Yuma, and (ii) to translate and analyze a large
body of Yuma texts collected by A.M. Halpern in the 1970s.

A dictionary of Yuma will fill a longstanding gap in the Yuman linguistic literature and
provide data for ongoing comparative Yuman and Hokan research as well as for research into
specific problems in Yuma phonology and morphology. As it will include data collected in the
1930s, the 1970s, and at the turn of the 21st century, it will be a rich source of data on language
change. A volume of analyzed texts will not only serve as a database for the study of Yuma
syntax and discourse but also preserve a body of ethnographic and linguistic data that would
otherwise be lost within a generation. Both volumes will be useful in typological and areal
linguistic studies and in anthropological and ethnographic research.

Beyond academia, a dictionary and volume of texts will be invaluable resources for
teachers in Quechan schools and for tribe members interested in maintaining and strengthening
language skills and cultural knowledge. When the language is no longer spoken, these volumes
will remain as a record of Quechan linguistic, literary, and cultural heritage.